Analysis of Magma Flow and Wall-Rock Deformation in Plutons Exposed at Different Structural Levels in the White-Inyo Range: Implications for Emplacement Mechanisms of Granitic..

The intrusion of magma into rocks representing various tectonic settings is a common phenomena, however how the crust accommodates the volume of magma and the mechanisms involved in emplacement of plutons are controversial. This project will examine four plutons that represent different depths of intrusion to determine the interactions between the internal structure of the plutons and their wall rocks under varying conditions. The work will involve study of magmatic fabrics using AMS analysis to determine the AMS signatures, the magmatic and solid-state microstructures and will be combined with other data to correlate the internal magmatic structures of the plutons to the solid state processes acting an their margins. Results will provide the bases for analysis of their emplacement mechanisms (which are controlled by a combination of pre-existing host rock structures, syn-intrusive regional stresses and magmatic pressures).